Autonomous Bio-optical Ocean Observing Systems Symposium

This grant serves as an Interagency Transfer to NOAA for joint support of a conference on Autonomous Bio-optical Ocean Observing Studies. The conference will be held on April 6-10, 1992 Monterey, CA. Papers and posters presented at the conference will focus on the latest technological advances in bio-optical sensors and system integration.